Theoretical Investigations Related to Ongoing and Prospective Experimental High Energy Physics

9408851 Taylor Research in particle physics will focus on the study of abnormal states of matter that will be formed during high energy collisions. The specific topic to be studied concern the formation and subsequent decay of metastable states in these processes. The occurrence of this phenomenon will give rise to copious production of particles called mesons with unusual distributions in the number of charged particles. The project will involve active participation in an experiment to look for such events. The results of the study will furnish a better picture of how particles interact. ***